International Research Fellow Awards: Biatom Diversity and Training in Mongolia's Lake Hovsgol National Park

9802816 Edlund The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty- four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a twelve-month postdoctoral research visit by Dr. Mark B. Edlund of the University of Michigan to work with Dr. Ts. Jamsran at Mongolian State University in Ulaanbaatar, Mongolia as well at the University of Michigan with Dr. Eugene Stoermer on biatom diversity and training in Lake Hovsgol National Park. Partial support is being provided by the East Asia-Pacific Program in the Division of International Programs. Dr. Edlund will study a component of the algal flora of Lake Hovsgol, completing a floristic survey, and create an herbarium of diatoms (single cell microscopic algae) and a reference collection. Lake Hovsgol is an ancient ecosystem in a tectonic basin. Lakes such as Hovsgol have existed for millions of years and are natural laboratories for the study of ecology and evolution. It has been named Mongolia's first International Long-Term Ecological Research site (LTER). Because this site is at risk ecologically, it is important to document its diversity. In addition to performing this documentation, Dr. Edlund will be working with Mongolian scientists, helping to train and prepare them for future research collaborations with the United States. ***